Regulation of the Stability of the Cytoplasmic Heat Shock RNA hsrw3

This is a Career Advancement Award to support Dr. Petersen's sabbatical visit to the laboratory of Dr. Mary Lou Pardue at MIT. Dr. Petersen will take advantage of constructs and techniques currently available in Dr. Pardue's laboratory to study the putative role that heat shock RNA may play in regulating protein synthesis following heat shock. These experiments will provide Dr. Petersen the opportunity to acquire familiarity with a variety of modern molecular biology techniques which will be applied directly to her own research program. Given the depth of experience Dr. Petersen already has in the stress response field, the acquisition of these new techniques and approaches are anticipated to significantly enhance her career.